Molecular Visualization in STEM Education - An Integrated Assessment Platform

Molecular models have been recognized as an essential part of the learning process in STEM education. Hand-built models of simple structures play a central role in the teaching of chemistry and material science. Unfortunately, physical models of complex structures, such as proteins, are difficult to build, let alone manipulate. However, with the advent of fast computers it is now possible to display three dimensional images of any structure. Yet, with the exception of a one-on-one teaching environment, it is currently very difficult for the instructor to obtain feedback on the activities of the student while they manipulate the model, e.g. did the student identify a key functional group in the structure? The key advance of this project is the development of a virtual learning environment (VLE) that can determine how a student interacts with a complex model. The VLE is designed to provide the following features that can be used in any area of STEM education: 1) display of a complex molecular structure using an open source graphics program (Jmol), 2) guidance to the student on how to manipulate the structure, 3) provision for student self-assessment, 4) feedback to the instructor to determine whether the student has reached the desired education goal. This project focuses on the development of a general platform for the VLE to be hosted within the Open Learning Initiative environment and implements VLEs in selected topics in biochemistry/molecular biology, introductory chemistry, and material science.